Preliminary Algorithmic Foundations for Ranking Quizzes and Students from Student-sourced Quizzes

The project addresses a new set of problems that will increasingly
arise with a gradual shift to massively open online courses and
large classes where new assessments to test active learning of the
concepts are costly to design. The context of the project is a
prototype cloud-based quiz management system that leads the online
learners through scaffolded activities, such as creating,
answering, and improving of student-sourced quiz items. The system
then automatically evaluates the competence of learners and the
quality of questions from outcomes of these activities. This
project addresses the key algorithmic issue in such systems of
efficiently determining the quality of the students and the
submitted items. Preliminary ideas for new algorithms will be
developed and deployed in the test system to understand their
advantages and shortcomings. The development and testing of
algorithms will provide opportunities for training two graduate
students. This will also lead to a refinement of the eventual
algorithmic design of a system for scalable online assessments with
significant societal impacts.

In particular, the project develops new algorithmic frameworks for
problems in the joint ranking of students and student-sourced quiz
questions based on feedback in the form of peer performance and
review. A key contribution is the formulation of these problems in
terms of abstract problems amenable to both combinatorial and
continuous optimization, which in turn allows a completely
unrelated subfield of people (those of optimization) to work on
these problems in the future. At the same time, the project will
undertake the groundwork of developing the first such algorithms
that solve these problems with current approaches.